SDCI NET: Development of an Ultra-high Speed End-to-end Transport Stack based on the Packet Scale Paradigm.

End-to-end data transfer rate requirements in the computational science communities
---including computational biology, physics, astronomy, medicine, and environmental
modeling--- are soon to approach the terabit-per-second regime. Unfortunately, the
state-of-the-art in end-to-end transport protocol implementations scales to at most a
few gigabit-per-seconds of single-stream steady-state throughput. This project will
develop a 10Gbps+ Linux transport-layer stack of the novel paradigm of "packet-scale
congestion-control", which can potentially improve scalability by several orders of
magnitude. For this, the project will: (i) develop a non ACK-clocked state machine
that replaces the TCP state machine, and (ii) develop both software-based as well as
hardware-assisted high-speed implementations of precise inter-packet gap control and
packet timestamping. The implementation will be extensively tested on a 10Gbps
in-laboratory test-bed as well as on nationwide NLR paths. The project will then
partner with up to three projects from the scientific domain, for deploying and
evaluating the impact of the protocol stack on their infrastructure. The resultant
implementation is expected to be transformative in the design and implementation of
non ACK-clocked transport protocols. It is expected to dramatically improve large
high-speed bulk data transfers, without requiring expensive dedicated networks, thus
revolutionizing how the computational science community relies on the networking
infrastructure.